The Second Workshop on Large-Scale Data Mining: Theory and Applications

This project will provide travel fellowships to support US students to
attend the 2nd workshop on Large-scale Data Mining: Theory and Applications
(LDMTA) in conjunction with KDD 2010 on July 25, 2010 in Washington DC. The
LDMTA workshop will cover topics on scalable machine learning and data mining
algorithms, and their applications, such as medical informatics,
telecommunications, social network analysis, and e-commerce. PIs aim at
investigating the scalability and efficiency of existing machine learning and
data mining algorithms with respect to both theoretical and experimental
perspectives.

Due to the recent data explosion in many applications, governments and
companies can easily collect data spanning terabytes, petabytes or more.
Several traditional data mining algorithms need to be replaced, or drastically
re-designed, to handle such volumes through parallel architecture such as
MapReduce/Hadoop. The focus of the workshop is exactly to bridge the gap
between theory and practice of data mining, focusing on the fundamental
research on large-scale data mining theory and applications. The goal of this
workshop is to assemble the leaders in data mining research and industry to
present their views on the need and challenges for large-scale data mining and
also attract graduate students to study on large-scale data mining.
The proposed student support will attract the US students to participate in
this workshop and present their works on topics related to large-scale data
mining, to encourage them to focus on the extremely promising research
direction of large-scale data mining as their thesis research. In particular,
PIs will try to broaden the involvement of female and minority students by
prioritizing the award to them.

For further information about this project see the project website at
http://arnetminer.org/LDMTA2010